Planning Grant: Science and Technology Research Center on Global Change

This proposal from the University of Arizona requests support toenhance the planning of a Science and Technology Center on GlobalChange. The Center's research, education, and outreachactivities would focus on the sensitivity of dry regions of theEarth's surface to global change, particularly in climate andatmospheric composition. The character of the research wouldinvolve a level of integration of scientific activity beyondtraditional scientific departments. Cross disciplinarycooperation in many fields, especially biology and geophysics, isanticipated. The Planning Grant activity will refine the research strategy,identify the personnel and resources needed, including those fromother institutions and agencies, and establish the necessaryinstitutional and individual commitments to the proposed Center. Given the pressing need for better understanding of the linksbetween global change and conditions in arid and surroundingregions, this research would address both a national andinternational concern.